Partial Support of the International Symposium on Vector Boson Self-Interactions; February 1-3, 1995; Los Angeles, California

9421874 Muller This grant partially supports a three-day-long International Symposium on Vector-Boson Self-Interactions at the University of California at Los in February, 1995. The subject is important for confirmation of a unique feature of the Standard Model of elementary particles. the grant provides funding for young scientists and students to participate in the Symposium. ***